CISE Research Instrumentation

An ATM-based network multicomputer will be procured for several projects involving distributing computing. These include distributed single-address space systems, distributed implementation of a functional language with futures, distributed FORTRAN D, distributed genome linkage analysis, and distributed shared memory.